Simulation in Mathematics - Probability and Computing (S.I.M.-P.A.C.)

This project is a response to mounting evidence that the secondary school curriculum does not provide adequate experiences in mathematical modeling, problem solving, the probability concepts. The proposed instructional design emphasizes an eight step simulation model building process, and the process of exploring simulation models as a strategy for developing problem solving skills and for understanding probability concepts. The approach to development of the materials is comprehensive: consideration is given to the student, teacher, and teacher training, with special attention given to the teacher's role in influencing instructional styles and curriculum change. The materials for implementing the instructional design and strategy include a student manual, teacher manual, and teacher training manual. These printed materials will be accompanied by computer software and instructional fields for use by teacher and student. This project aptly meets both the objectives of the Instructional Materials Development Program as well as the thinking of mathematicians and researchers in the cognitive sciences. The materials, and the attention given to real classroom situations will provide the inroad necessary to modify the mathematics curriculum so that consideration of the uses of technology in teaching of the discipline will find its way into the secondary school classrooms.